Temporal and Spatial Variations in Helium Isotopes Along Mid-Ocean Ridges

9402506 Graham This project will analyze the He isotopes in rocks collected from three parts of the mid-ocean ridge system--the East Pacific Ridge, the Mid-Atlantic Ridge, and an area of the Southeast Indian Ridge. The isotopes will be compared with other geochemical and geophysical parameters from these areas, to address a set of questions concerning the variability of mantle magmas. ***